Vertical Cavity Surface Emitting Laser (VCSEL) Based Free-Space Processing System for a Biomolecular Database Scanner

The proposal describes the application of VCSELs and Smart Pixels to a biomedical database scanner. The goal is to build a prototype demonstrator and to asses the feasibility of a full-scale architecure for hardware-based and free-space optics-interconnected database search engine.